Applying Compiler Techniques to Proof-Carrying Code

Proposal Number: CCR-9974553

Title: Applying Compiler Technology to Proof-Carrying Code
PI: Andrew W. Appel

Proof-carrying code (PCC) is an exciting new development in mobile-code
security. An untrusted code provider provides a native-code program
along with a proof of safety; the code consumer can check the proof before
executing the program. Since proof-checking is a simple and
easily mechanized process, the trusted computing base of this system
can be quite small. However, PCC is an immature technology and faces
several challenges: keeping proof size small, proving safety of complex
operations such as allocating and initializing data structures, and
making the code consumer's safety policy universal and language-independent.
This project will address each of these issues, applying science and
technology
developed for compilers to the area of program verification.